Space Weather: Concerning the Solar Wind Input into the Magnetosphere

This project will better determine the conditions under which near- Earth solar wind monitors can be relied upon to measure the parameters arriving at the dayside magnetopause. Using upstream spacecraft such as IMP-8, ISEE 1/2, and IRM, the project will attempt to (1) determine scale sizes of solar wind features, (2) compare observed and predicted time lags for tangential and rotationl discontinuities, (3) determine how well IMF Bz can be predicted from upstream monitors, (4) test if high time resolution magnetic field measurements can proxy for dynamic pressure, (5) determine how the foreshock preconditions the solar wind, and (6) determine how the waves generated by discontinuities interacting with the bow shock propagate to the magnetopause.